SBIR Phase II: Dynamic Signal Processing and Information Extraction for E-Noses

This Small Business Innovation Research SBIR) Phase II project focuses on the development of electronic nose signal processing and dynamic pattern recognition systems specifically tuned to the properties of odors. This advanced e-nose signal processing toolbox should improve current selectivity by an order of magnitude. A prototype exhaled-breath propofol (anesthetic) monitor for use in measuring depth of anesthesia in patients undergoing surgery will be built and demonstrated.

The initial commercial application of this project will be in the medical surgery area where the product should provide more accurate patient dosing during anesthesia. The technology, however, may be broadly applicable to such key areas as medical diagnostics, illicit drug detection, glucose monitoring, etc.